Shipboard Scientific Support Equipment, R/V Blue Heron 2012

ABSTRACT

23 July 2012
Proposal Number: 1219610
Institution: University of Minnesota Duluth
PI: R. Ricketts

This proposal requests one Shipboard Scientific Support Equipment (SSSE) item for the R/V BLUE HERON; namely up-grades to the vessel’s winch wire monitoring system. This item will enhance safety on deck and provide greatly improved science support capabilities.

Broader Impacts: The University of Minnesota supports federally-funded scientific research on the Great Lakes and routinely exposes graduate and undergraduate students to the marine sciences. The R/V BLUE HERON is scheduled to complete over 30 NSF sponsored days in 2012.